TEAMSS--Teacher Enhanced Application for Middle School Science with Hypermedia

This two-year project sponsored by the George Washington University is designed to enhance the content knowledge and teaching skills of middle school science educators, to create a model for the innovative use of computer aided, hypermedia technology in the science classrooms and to encourage increased collaboration between education and scientists. The first year will focus on life sciences and the second year will focus on the physical sciences both as appropriate for the middle school curriculum. Each year fourteen teams from schools in the greater Washington, D.C. area will participate in a four week summer workshop with school year follow up sessions and site visits. The summer workshops consist of content enhancement, skill building in the use of computer aided hypermedia and skill and content utilization through the development of classroom lessons and leadership skills development. The school year follow up includes team meetings, implementation of science lessons, site visits, Saturday sessions, inservice workshops lead by participants and participation in a regional science educators conference.